Postdoctoral Research Fellowship in Chemistry

Mr. T. Daniel Patrick Stack has been recommended for a Postdoctoral Research Fellowship in Chemistry Award. Mr. Stack's doctoral degree will be from Harvard University under the supervision of Professor R. H. Holm. He intends to continue his research at the University of California at Berkeley under the sponsorship of Professor K. N. Raymond. Mr. Stack's area of Postdoctoral Research will be Solvent Proton Relaxivity Effected by Ferric Iron Complexes: Maximization of the Contributions of Saturatively Coordinated Complexes.